Shipboard Scientific Support Equipment

This project will supply shipboard scientific support equipment for the research vessel MOANA WAVE, operated by the University of Hawaii, and dedicated to use in support of ocean science research. The Shipboard Scientific Support Equipment Program provides funds for ship equipment deemed essential to the proper and safe conduct of ocean science research. This Program provides support for such items as deck equipment including winch systems for the deployment and retrieval of scientific instruments, navigational equipment such as radars, gyroscopes and earth satellite receivers to pin point the location of research sites, communication equipment including radio transceivers and satellite transceivers for voice and scientific data communications and other equipment such as motorized workboats for transporting scientists to and from data retrieval sites. The Project Director, Dr. Charles Helsley is fully qualified to direct this project having had considerable experience in overseeing the acquisition and installation of shipboard equipment. This project will allow the institution to install a coring system for improved safe handling of cores, and to replace a damaged work boat.